UAF/ARSC Application under NSF NCRI Connections to the Internet Program for Meritorious Applications

This award is made under the high performance connections portion of ANIR's
"Connections to the Internet" announcement, NSF 98-102. It provides
support for two years for an OC-3 connection to the vBNS for University of
Alaska at Fairbanks and the Arctic Region Supercomputing Center through a
partnership with agency networks of DoD, NASA and NOAA. Applications
include Arctic region on-line library, collaborative information
spreadsheet, distributed image spreadsheet, Eulerian polar ionosphere
modeling, modeling study of ocean and sea ice, volcano observing, near
real-time Auroral and space weather data and weather forecasts for national
avionics. Collaborating institutions and agencies include University of
Washington, University of Missouri-Columbia, NASA Goddard Space Flight
Center, NOAA Pacific Marine Environmental Laboratory, University of
Colorado Boulder, USAF, FAA and Japan's MPT Communications Research
Laboratory.